MAX '91 Coordination and Studies of Solar Activity on Timescales of Milliseconds to Years

MAX91 is an observational program to study solar activity in the 1990's with emphasis on coordination of observations from existing facilities and also from new balloon, rocket and ground- based instrumentation. Accordingly, the program requires the early appointment of a solar physicist to act as the "MAX91 Coordinator." One component of this grant is for a solar physicist to assume the role of MAX91 Coordinator. The grant will effect efficient MAX91 operation by establishing reliable one-way, and modern two-way, computer-based lines of communications to the solar physics community. The Coordinator will also work closely with a solar forecaster (specifically associated with MAX91) to optimize scientific output of campaigns in response to real-time solar conditions. Three studies which encompass varying aspects of solar activity on timescales that vary over eleven orders of magnitude are also planned: Milliseconds - Seconds Three year observational program with a newly developed, high speed digital camera system. This system can observe simultaneously at three optical wavelengths with high temporal and spatial resolution: From comparisons with X-ray data, it is expected to resolve important time-of-flight effects of accelerated electrons in solar flares; this addresses fundamental properties of energy release in flares. Seconds - Hours Investigation of temporal and spectral signatures of "impulsive" and "gradual" hard X-ray bursts: This study will analyze over 4,500 hard X-ray flares to quantify the characteristic differences between the two principal types of flare behavior: impulsive and gradual. Hours - Years Investigation of an apparent 152-158 day periodicity in solar activity first discovered in gamma-ray flare production rates: From new analyses of databases which extend from 10 to 120 years in the past, it is intended to either establish or to discredit this "periodicity" as a fundamental physical property of solar activity.